Balance Between the Intake of Beneficial Nutrients and Deleterious Allelochemicals in Caterpillars

The proposed research will investigate the mechanisms by which insects (in particular, leaf-chewing caterpillars) cope with the potential toxins (termed "allelochemicals") that occur naturally in their foodplants. Insects produce certain enzymes that can detoxify may allelochemicals; they can also choose to feed on or avoid certain plants, based on taste and/or smell of the allelochemicals present. But how do insects respond to variation in levels of nutrients and allelochemicals in their foodplants? And do these responses to nutritional variation affect the insects' ability to detoxify or otherwise cope with the allelochemicals? We know that many insect species respond to reduced nutritional quality of their food by eating more, but we don't know the consequences to the insects of this increased feeding, in terms of consuming more of a toxin. Also, we don't know whether insects can balance their intake of beneficial nutrients and deleterious allelochemicals to achieve their best growth and survival under the circumstances. Within this context, the proposed research addresses the interactions between nutrients, allelochemicals, detoxication enzymes and insect feeding behavior. This research will provide important basic information necessary for understanding the ecological and evolutionary aspects of insect feeding behavior. The research will also concentrate on important crop pests, and thus the results will lead to better understanding of their feeding behavior, which in turn will contribute to developing more effective methods to manage these pests.